Innovative Testing Science

This project seeks support to explore the results of trying alternative assessment items in the sciences, developed at the Science Teaching Center in Israel, with secondary school level students in the United States. It will determine if more international cooperation is possible and wise in developing the movement to complement multiple choice test items with other forms of student assessment in the sciences.